Group Travel Grant for the 1999 International Symposium on Technology and Society (ISTAS'99)

The IEEE's Society for the Social Implications of Technology (SSIT), the IEEE History Center, and the IEEE Women in Engineering Committee (WIE) will cosponsor the 1999 International Symposium on Technology and Society (ISTAS 99) to be held 29-31 July 1999 at Rutgers University, New Brunswick, NJ. The theme of this symposium is "Women and Technology: Historical, Societal, and Professional Perspectives." The target audience for this symposium includes scholars and students in a range of fields, and practicing engineers. This grant provides $8,000 to help offset travel expenses and conference fees for individuals making presentations at the conference.